Double Ellipsoid Image Furnace for Growth of Ceramic Single Crystals

9724625 Goodenough An optical float zone, image furnace will be acquired by the University of Texas at Austin for the growth of complex refractory oxide and manganese oxide crystals. The furnace will be part of a facility under the oversight of a Materials Institute that the University is in the process of establishing. It will be used to grow materials where narrow-band phenomena are present, including high temperature copper oxide superconductors and manganese oxides exhibiting "colossal" magnetoresistance. %%% The equipment will support research in a highly topical field with significant momentum. It will also enable continued emphasis and training in bulk crystal growth techniques. ***